NSF Workshop on Future Directions of Computer System Research in 2010

The NSF-sponsored workshop on 'Future Directions of Computer System Research in 2010' is to be held in the Waterview Conference Center, Arlington, VA over the two days of March 25-26, 2010.

The outcome of this workshop is a report that outlines new research directions in the general area of Computer Systems. This report will become available on the web within two weeks after the conclusion of the workshop, and will be used later as an inspiration in writing the new solicitation of the CSR program.